A Seismic Refraction Investigation of Crustal Thickness Variations between the Australian-Antarctic Discordance and the Neighboring Southeast Indian Ridge: Data Analysis

9521344 Orcutt These investigators have collected seismic data within the Australian-Antarctic Discordance to measure the crustal thickness for two neighboring segments. These data will provide a crucial test of the relationship between axial basalt chemistry, crustal thickness, and axial depth since the Discordance is an end-member in terms of depth for a given spreading rate. This grant will allow the investigators to finalize the analyses of these data. ***